ITR: Information Representation for Cooperation Across Networks

ITR: Information Representation for Cooperation Across Networks

We define cooperation among the nodes of a network to include any activity
where the action of a single individual relies on information from other
individuals in a shared environment. Using this broad definition,
information aggregation in sensor networks, group activities performed by
autonomous robotic devices, internet exploration and modeling, and
establishment of ad hoc networks are all examples of tasks involving
cooperation among the nodes of a network. An essential feature common to
cooperative tasks is the need to share information across a distributed
system. Thus cooperation requires the flow of information. In environments
limited by constraints on power, bandwidth, time, or memory, efficient
information flow requires efficient data representation. We are currently
studying strategies for efficient information representation in network
systems. When we speak of information representation for a network,
we consider the network as a whole, asking questions about where information
resides in the network, where it is needed, and how to most efficiently
represent the information to make it accessible where it is needed.
Current topics of investigation include network data compression, functional
source coding for networks, and joint source-channel coding for networks.